RI:Collaborative Research: Robust Ornithopter Flight - from Engineering Models to Cooperative Indoor Maneuvers

Flapping flight provides high maneuverability for indoor environments.
To achieve robust intelligence for tasks such as search and indoor
navigation, the maneuverability of an ornithopter will be combined
with a learning approach which makes minimal assumptions about the
nature of disturbances and obstacles. We propose to develop
algorithms for ornithopters to cooperate in sensing and navigation in
typical indoor environments without prior maps. Our research will be
verified with full three dimensional dynamic simulation, a
multi-tethered laboratory test-bed, as well as with actual indoor
flying ornithopters.

The key research issues to be addressed in this work are:
1) improved ornithopter mechanics and aerodynamics
2) robust ornithopter flight control strategies
3) learning algorithms for cooperative navigation
of ornithopters using only simple sensor information

This research will advance understanding of high maneuverability
flapping wing vehicles for indoor flight. By combining research from
the levels of mechanics to learned behavior in a real indoor
environment, we will test how performance at each level can be
integrated to achieve robust intelligence.

Our project will provide interdisciplinary education for students in
achieving robust intelligence through the combination of mechanics,
sensing, control, and learning. This research can lead to flying
robots which can robustly enter unknown and hazardous indoor
environments, potentially keeping rescue workers out of harms way.